Workshop: Wireless Grants Review Workshop at the National Academy of Sciences in Washington, DC.

0102257
Iskander

The PI requests NSF funding of the first Wireless Grants Review Workshop to be held on February 20-21, 2001 at the National Academy of Sciences in Washington, DC.

The main objective of this workshop is to help establish closer ties among the wireless communications researchers at NSF and to facilitate a forum for exchanging ideas, discussing progress, minimizing duplication, and ultimately helping build and maintain a stronger research program in this area at NSF. The workshop is also expected to help NSF learn of outcomes from ongoing research projects, highlight and display significant progress to communities at large, and also identify and focus future funding on promising technologies in this fast-growing area of research.
***